General Services Adminitration

General Services Administration to supplement and to aid NSF OIG efforts in the achievement of it's congressionally mandated programs. This Interagency Agreement (IA) will enable NSF OIG to fund and contract with the General Services Administration for the provision of these services.